GOALI: Exploration of Coating Techniques and Materials for Containment of PCBs in Contaminated Concrete

9710107 Dzombak This is an award the objective of which is to determine approaches that can be used to address environmental problems associated with concrete that has been contaminated by oils that contain polychlorinated biphenyl compounds. The investigator will work at the Alcoa Technical Center for a period of three months to investigate the historic experiences with using surface coatings to encapsulate these organic contaminants of concrete, exploration of new materials and techniques for coatings to reduce their initial absorption and finding new approaches for addressing this problem. This project will be performed in collaboration with personnel from the Alcoa Technical Center in accord with guidelines contained in NSF 95-111 and 95-112, Grant Opportunities for Academic Liaison with Industry. The industrial collaborator in conduct of this project is Dr. John R. Smith, Consultant, EHS Technology Center, the Aluminum Company of America's Alcoa Technical Center ***